Post-earthquake Rebuilding-an Exercise for Planners (PREP)

When earthquakes strike, federal, state and local emergency response and disaster assistance systems move into place. The responders are periodically trained through response exercises which provide realistic simulations of possible disasters. The exercises prepare participants to make decisions, coordinate with others and face extreme situations under extraordinary pressure. However, after the emergency responders have gone back to normal operations, the tasks of rebuilding are just beginning. A new set of players faces extreme and unanticipated circumstances which can dominate work for years to come. This project is designed to help planners across the country who someday may be faced with the immense challenge of guiding the rebuilding of a community damaged by an earthquake. The proposed project is to draw upon and expand past work of the principal investigators and others to develop a model timeline of rebuilding after earthquakes. This model timeline will be synthesized from actual timelines of rebuilding constructed for 15 to 18 communities damaged by earthquakes. It will show the sequence and relationships of key rebuilding actions and decisions pertaining to clearance, repairing infrastructure, rehousing, business recovery, restoration of public facilities, and reconstruction planning. The model timeline will then be used as the basis for creating a simulation exercise telescoping 10 to 20 years of rebuilding activity into a two-day, realistic, interactive learning experience for local planners. The simulation exercise will be tested with a group of planners invited from around the country, revised, and then described in a report for use by local planning departments.